Terahertz Response of Unique Composite Metamaterials

ECCS -0725764
Weili Zhang, Oklahoma State University

Metamaterials, with both negative permittivity and negative permeability, have opened up an entirely new world of devices that may lead to breakthrough applications in a broad range of disciplines. This project focuses on investigation of composite subwavelength-structured metamaterials using techniques of terahertz spectroscopy. The longer-term goal of this program is to develop integrated and efficient terahertz circuit elements capable of being integrated into compact platforms for applications in aerospace communications and surveillance systems, optoelectronics, and biosensing.

Intellectual Merit: The proposed program encompasses multiple research efforts to develop metamaterials functioning at terahertz frequencies. The state-of-the-art terahertz spectroscopy technology will be used to characterize the electrical and magnetic properties of terahertz metamaterials. Novel metamaterial configurations with enhanced magnetic response and low loss will be explored to establish negative index of refraction in the terahertz regime. A proof-of-concept examination of potential use of metamaterials in biosensing will be undertaken. The PIs also propose to explore unique semiconductor metamaterials that exhibit instantaneous electric and magnetic response to electromagnetic radiation. Additionally, magnetic terahertz surface plasmons will be investigated at the surface of two-dimensional metamaterials.

Broader Impact: The proposed program will enable development of terahertz technology and new generation integrated optoelectronic devices that will impact a broad range of disciplines, particularly aerospace communications, biosensing, and terahertz imaging. The PIs would continue their collaboration with industry in developing terahertz components and microsensors. A new graduate level course, introduction to metamaterials, will be developed for photonics students. New topics in metamaterials will be implemented in an ongoing “cleanroom open house” program offered to high school students, particularly the Oklahoma Native Americans. The PIs will also team up with other colleagues to develop programs in optical science for K-12 students.